Collaborative Research: Origin and Isotopic Signature of Neoproterozoic Post-Glacial Cap Carbonates, Australia

9418192 Derry An integrated stratigraphic, sedimentological and geochemical study of thin but laterally persistent "cap carbonate" rocks that overlie each of two main glacial units in the Neoproterozoic of Australia. The association of such carbonate rocks with glacial deposits in the Neoproterozoic is now recognized as a global phenomenon, and in many sections the glacial to post-glacial transition appears to contemporaneity. The widespread association of distinctive facies and pronounced 13C excursions that has been taken as evidence for contemporaneity. The widespread association of distinctive facies and pronounced 13C excursions argues for a genetic link, a link that has potentially major implications for biological evolution and environmental change in Neoproterozoic time, but which is not yet well understood.